EAGER: SUPER: Collaborative Research: Stabilization of Warm and Light Superconductors at Low Pressures by Chemical Doping

NONTECHNICAL SUMMARY
This award supports computational and experimental research and education aimed to result in the rational design and synthesis of materials that are superconducting at ambient temperatures and pressures. Superconductors can be used in many important technologies, including cables that transmit power without loss, electromagnets in magnetic resonance imaging machines and wind-turbines, extremely sensitive sensors, and as qubits in superconducting computers. Unfortunately, superconductivity in a material normally takes place at cryogenic temperatures, which is a major hurdle for applications. Recent major breakthroughs have shown that near room temperature superconductors can be made in materials that contain light elements, but only at pressures that surpass one million times atmospheric pressure.

One class of known high pressure superconducting materials is based on cage-like structures made from hydrogen that are filled with metal atoms. The team will perform computations based upon quantum mechanics to pinpoint the best chemical species that can be added to these cage-like structures so that they retain their good superconducting properties even at lower pressures. Key to uncovering the most promising dopants will be the calculation of chemical pressure maps. Subsequently, diamond anvil cells and large volume presses will be employed to synthesize high-quality crystals of select compounds whose structures and properties will be experimentally determined. Analogous work will be performed on cage-like structures made from boron and carbon atoms.

Graduate students will be exposed to a multi-disciplinary atmosphere, and learn how to communicate with experimentalists and theoreticians from different backgrounds. They will participate in outreach activities including mentoring undergraduates, especially from minority and underrepresented groups, and university open house events. The tight feedback loop between experiment and theory will provide a roadmap for future materials-by-design research.

TECHNICAL SUMMARY
This award supports computational and experimental research and education aimed to result in the rational design and synthesis of materials that are superconducting at ambient temperatures and pressures. First-principles calculations of chemical pressure maps will be used to uncover the most promising chemical dopants for achieving high superconducting critical temperatures in light element systems stable at low, and even ambient pressures. The pressure-dependent stability, superconducting properties and spectroscopic signatures of these compounds will be calculated, and related to the chemical pressure maps. At the same time, novel pathways within laser heated diamond anvil cells and large volume presses will be used to synthesize high-quality crystals of the most promising candidates. Synchrotron single-crystal x-ray diffraction, Raman spectroscopy and transport properties will be measured, and compared with theoretical results to aid in structural, compositional, and physical property characterization. Electrical conductivity will be measured to verify superconductivity. This project will transform the way in which light element based high-temperature superconductors are designed, synthesized, and characterized.

The PIs will focus on compounds related to the known binary superhydrides that contain clathrate cage-like structures because superconductivity has been measured in many of their members. The first class to be studied are boron/carbon analogues of the superhydrides because the replacement of the hydrogen atoms by light p-block elements that form strong covalent bonds will render some of these phases stable at normal pressures while retaining properties that are crucial for superconductivity. The second class are ternary superhydrides derived from the known binaries. Chemical pressure maps will reveal which elements have the correct radius to achieve a denser packing than in the binary hydride, while at the same time keeping the extended hydrogenic lattice required for the large electron phonon coupling. Experiments will map out the phase diagram by x-ray diffraction and Raman with laser heating under pressure.

Students involved in this project will be trained in state-of-the-art theoretical and experimental techniques, and be exposed to a multi-disciplinary atmosphere where they learn to communicate with scientists from very different fields. The creation of materials that are superconducting at normal temperatures and pressures will have a tremendous impact on the electrical grid infrastructure, medical technology, renewable energy and lead to new innovations. The tight feedback loop between experiment and theory will advance the field of materials by design. The PIs will communicate with the popular science media about the breakthroughs made in this field, thereby educating the public and motivating future scientists.